A Rising Tide: Lifting Student Success in Science, Engineering, and Math in Southwestern Washington

This project is a) increasing the number of students pursuing degrees in STEM areas, b) increasing the retention and academic success of S-STEM scholars, c) enriching their learning environment and d) facilitating the transfer of S-STEM scholars to appropriate baccalaureate institutions. The project is partnering with existing outreach programs at Centralia College to induce more middle and high school students to choose STEM careers. S-STEM scholars are working with peer and faculty mentors, visiting labs and field sites of STEM professionals, pursuing independent research opportunities and attending regional scientific conferences, visiting potential transfer institutions, and meeting with financial aid / admissions experts to ensure academic success. This project is increasing the visibility of STEM careers in a rural area that lacks role models in these areas. Many project activities are open to all Centralia College students, lifting the academic achievement of not only the S-STEM scholars, but also their classmates. The investment in S-STEM scholars is having a spillover effect on their classmates, on the visibility of STEM careers and education programs at the college, and on the viability of STEM careers to students in the community who might otherwise not attempt this path.